Magnetically Assisted CMP of Low-K Polymers

In IC fabrication chemical mechanical planarization (CMP) is used to planarize surfaces of
conductors like aluminum, tungsten, tantalum and copper and dielectrics like silicon dioxide,
silicon nitride, and low-k polymers. The CMP process is the only technique available now to
provide surfaces across the die and wafer with planarity sufficient to meet the stringent depth of
focus requirements of shorter wavelength lithographic techniques. The CMP of low-k polymeric
materials and architectures overlaid on these polymers is challenging. This is because the low-k
polymeric materials are mechanically softer and even porous, can flow under heat, and have
hydrophobic surfaces. There exists a critical need for developing low pressure, selective, and
effective CMP process of the new, low-k polymers and architectures overlaid on these polymers.
The primary objective of this program is to develop a novel approach using magnetically
responsive slurries (MRS) to conduct CMP of low-k polymers and associated structures. The
project is a joint collaborative, interdisciplinary, synergistic effort between investigators from
Clarkson University and University of Pittsburgh, with collaboration with industry. A
fundamental and systematic investigation of the feasibility such a magnetically assisted CMP
process will be conducted. The outcome of this program has the potential for a significantly high
economic payoff. This project will have significant combined impact on the: basic science that
forms the underpinning of the CMP technology, research infrastructure, and development of
human resources.